1999 Oceanographic Instrumentation

Freitag
This award to University of Rhode Island will provide instrumentation for oceanographic research for use on R/V Endeavor, a research vessel operated by the university's Graduate School of Oceanography as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired is a winch to support a towed, undulating sensor package acquired with 1998 NSF support for oceanographic and biological measurements. In addition, the present award includes support for bottles for sampling sea water for physical and chemical oceanographic research. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the Northwest Atlantic Ocean, in 1999 and future years.
***